Cyclic and Polycyclic Polystannanes

With support from the Organic Dynamics Program, Dr. Sita, who recently moved from Carnegie Mellon University to California Institute of Technology, will study the synthesis and chemistry of cyclic and polycyclic polystannanes. Syntheses will be pursued in each case by delineating the steric and electronic factors which govern a proposed series of reactions that lead to the target cyclic and polycyclic organostannanes. Once each synthesis has been achieved, the new organostannane will be studied by using a variety of spectroscopic methods in order to confirm its molecular structure and to investigate the nature of bonding to tin in the new molecular system. The data thereby obtained will be correlated with existing theoretical models. %%% Dr. Sita's research program is concerned with elevating the level of understanding of the cyclic and polycyclic chemistry of organotin compounds to that which is presently enjoyed by carbocyclic systems. Dr. Sita's research on the synthesis and chemistry of these new systems is expected to provide new insight into: (i) the ways in which steric strain is expressed and, ultimately, accomodated structurally in cyclic and polycyclic organotin compounds, (ii) the development of new organotin-based materials, and (iii) the development of synthetic strategy in organotin chemistry. Dr. Sita's research is likely to lead to improved understanding of the various factors which govern structure/bonding/physical property relationships and chemical reactivity in systems that contain heavy elements (such as tin). His work in this area is likely to be of interest to organic and main group organometallic chemists as well as to structural chemists.